Hometown Linkages and Contemporary Socioeconomic Change Among the Yoruba in Southwestern Nigeria

This project supports a cultural anthropologist with extensive experience in Africa and in the Philippines studying the home- town linkages of urban workers in Yoruba society, Nigeria. In contemporary third-world societies, many people are highly mobile but maintain ties with their home base. This project studies how hometown links are operationalized in the context of the 1980's economic crisis. Using ethnographic and survey methods, the project will examine individual, family, and organizational links to the hometown, analyzing gender and socioeconomic differences in the reliance on these ties. Information from Africa will be compared with the investigator's similar case study from the Philippines. This study is important because it will provide a corrective to the simplistic view of third world migration as "push" from opportunity-poor rural areas and "pull" from opportunity-rich urban sites. The reality is that urban migrants maintain important ties with their place of origin. The knowledge from this case study will be useful to those concerned with urban problems in the third world, as it will illuminate the reasons and values behind rural-urban population movements.